I/UCRC: BioMolecular Interaction Technology Center

The pharmaceutical and biotechnology industries play a vital role in maintaining and promoting a healthy population, and constitute a major sector of the US economy. These industries have evolved from the empirical treatment of disease to a sophisticated approach for drug development which requires a deeper understanding of the biochemistry of life processes. As a consequence, the accurate description of biomolecular interactions has become a central element in understanding disease mechanisms, and now is an essential ingredient for devising safe and effective pharmaceuticals. A variety of instruments and methods are used to characterize biomolecular interactions. This I/UCRC will enable pharmaceutical and biotechnological, and instrumentation companies to work together toward the development of advanced technologies for characterizing molecular interactions.